Partnerships for Minority Student Achievement in Science, Mathematics and Technology in Prince George's County Public Schools

Partnerships for Minority Student Achievement in the Prince George's County Maryland, Public School System will coordinate and expand the links between those efforts whose goal it is to increase the number of minorities in mathematics, scicence and technology- related careers. Curriculum refork efforts will yield an integrated curricular framework in mathematics and science which includes instructional resource support materials. Teacher enhancement and staff development efforts will build upon the "lead teacher" concept already established in the district's schools to create School Science and Mathematics Leadership Teams. Within each of the district's five administrative areas, cluster or feeder schools will come together as School Partnership Teams, thereby constituting Kindergarten through grade 12 field study laboratories. Oversite and coordination for all existing and proposed initiatives and resources for staff and students will be the primary responsibility of the Project Director and designated school system staff, working with an advisory committee representing a broad spectrum of agencies, organizations, consultant "experts" and other school communities. The PMSA Advisory Board will review and advise staff regarding such issues as priority areas of focus; teacher, student and parent activities; outreach initiatives; and process and product evaluations for the efforts undertaken through the grant. Student enrichment activities will include mentoring, tutoring and role model programs, Saturday and summer enrichment programs involving such groups as the National Society for Black Engineers, Black Men United, and a variety of religious and community groups.